Georgia State University Conference on Active Galactic Nuclei: October 28-30, 1987

Georgia State University will host a conference in Atlanta, Georgia on "Active Galactic Nuclei" 28-30 October, 1987. The conference will involve approximately 100 participants primarily from institutions in North America. This conference will provide a forum for discussions of recent developments and the current status of our understanding of active galactic nuclei from both an observational and a theoretical perspective. The conference will be centered around a number of invited review papers. A limited number of oral contributed papers will also be scheduled in addition to several poster sessions. The grant will provided for the partial reimbursement of travel expenses for invited speakers and a limited number of young investigators.